NSF Minority Postdoctoral Research Fellowship for FY-1999

This action funds an NSF Minority Postdoctoral Research Fellowship for 1999.

The research and training plan is in the area of biochemistry and is entitled "Chemical control of serine protease zymogen activation." Zymogens are inactive precursors of enzymes which undergo specific intermolecular proteolytic cleavage and metal chelation to form pre-enzymes and enzymes. Molecular modeling and molecular biological techniques are being used to eluclidate the steps of zymogen formation and activation leading to the important digestive, protein-cleaving enzyme trypsin.